GSE: Working Class Women using Community College Pathways to Four Year STEM Degrees

Female African American and Latino students from working class families are significantly underrepresented in science and technical fields, especially computer science and engineering. Since over fifty percent of first generation, lower-income income Latinos and African American women use two year colleges as an entry point to the four year degree, and so few actually complete that pathway, research is needed to better understand this pathway and the experience of ethnically diverse working class women within the pathway. This study uses a mixed methods short-term longitudinal sequential design. Two cohorts are followed over a 15 month time period: 1) 75 community college students accepted as transfers to 4-year colleges to pursue STEM degrees, and 2) 75 recent high school graduates entering community college for the first time. Data sources include ethnographic interviews at the organization level and with key adult supporters across contexts of home, college and workplace, individual interviews, and quantitative surveys of mentoring, cultural capital, and procedural knowledge. Growth curve models trace cultural capital and mentoring over time, and qualitative data are used to identify key factors that influence the persistence of the participants at an individual and organization level. In-depth case studies increase understanding about the process of acquiring and sustaining mentoring and related capital, and how these three major contexts function in concert with one another in the lives of working class students.

Intellectual Merit: At the four year post-secondary level, there is a substantial body of research examining students’ decisions to switch away from science and technology fields while pursuing their four-year college degrees. Although this past research has provided a critical foundation for examining retention, this study contributes significant new knowledge about working class women and the variability within their transitions along the community college pathway to the four year STEM degrees. Given the complexity of working class women’s educational pathways, and the field’s lack of research focused on this population and community college STEM pathways, this study offers new knowledge about the factors that contribute to persistence of working class women of diverse ethnic backgrounds.

Broader Impacts: Knowledge from this study influences the retention of working class women, with a large proportion of students of color by offering organizations (colleges and universities) strategies to assist these women in their pursuit of STEM education. In addition, the study includes several female undergraduate students, including many students of color and first generation college students, in a research experience. Existing partnerships between community colleges and four year colleges are fostered and strengthened. Dissemination includes the development of a website for use in public schools, reports for public audiences, white papers, and journal articles.